Improving the Laser-Heated Pedestal-Growth Process for Growing Long Single Crystal Fibers

This research is concerned with improving the laser-heated pedestal-growth method in order to grow long single crystalline fibers of sapphire, yittrium aluminum garnet, titanium carbide, titanium diboride, and barium fluoride. Single crystal fibers of these materials in lengths greater than one meter have not previously been grown. These fibers will have potential widespread applications in such areas as strengthening elements in structural composite materials, and fiber optic sensors for medical and other applications.